U.S. Participation in International Engineering Organizations

Support for increased participation of the U.S. engineering community in activities of international engineering organizations, specifically the World Federation of Engineering Organizations (WFEO) and the Pan American Federation of Engineering Societies (UPADI) is provided. WFEO, currently headquartered in London, comprises 85 national members and several regional associations of engineering societies. UPADI, headquartered in Venezuela, has national members from 27 Western Hemisphere countries and is an international member of WFEO. UITA is headquartered in Paris and is a federation of thirty technical organizations, without national members. The U.S. engineering community has made great strides toward the creation of more effective, more unified international engineering organizations. New U.S. appointments have been made to major WFEO Technical Committees, the management of WFEO has been strengthened under new leadership, WFEO and UITA have agreed to cooperate on joint projects of mutual interest, and links with major international programs are being developed. The U.S. is also playing an enlarged role in UPADI. Enhancement of these efforts, will strengthen the voice and influence of U.S. engineering internationally, help to encourage the further development of joint activities between international engineering organizations, and provide other important benefits.